Promoting Achievement and Diversity in Economics

This award funds an innovative collaboration between the University of Maryland and Prince George’s Community College. Their partnership will focus on building a research participation pathway for students transferring from community college to a four-year institution. The goal is to attract a wider range of students to consider careers in economics research. UMD already hosts a program designed to involve academically-talented undergraduate economics students in faculty research projects. This program also provides the participating students with mentoring, academic support, and professional development opportunities. The award will extend this program to a community college campus and will also fund additional research experiences for recent graduates who are considering pursuing graduate studies.